Development and Application of New Synthetic Reactions

The focus of this research is to develop an ene-like reaction between aldehydes and vinyl ethers, catalyzed by an acetic acid:lanthanide shift reagent complex. The methodology will be used to synthesize representative terpenes, prostanoids, alkaloids and carbohydrates. The methodology offers a valuable, environmentally benign alternative to aldol- and amino-aldol reactions now in use. With this award, the Synthetic Organic Program is supporting the research of Dr. Marco A. Ciufolini of the Department of Chemistry at Rice University. Professor Ciufolini will focus his work on developing asymmetric, catalytic methods for the formation of carbon-carbon bonds. These methods hold great potential for use in the industrial synthesis of drugs and polymers with unique properties.